Gromov-Witten Theory and its Applications

Abstract

Award: DMS-0803193
Principal Investigator: Yongbin Ruan

During the past twenty years, there has been a great deal of
interaction between mathematics and physics. An important area of
this interaction involves the theory of Gromov-Witten
invariants. In physics, it counts the instantons corrections of
Calabi-Yau space. In mathematics, it provides important
invariants for algebraic and symplectic geometry. Inspired by
both mathematics and physics, Gromov-Witten theory has been
established in a variety of situations such as relative
Gromov-Witten theory and orbifold Gromov-Witten theory. Each of
them is an integral part of the big picture and they have been
essential for a complete understanding of Gromov-Witten
theory. This proposal seeks to advance Gromov-Witten theory in
two directions; (i) expanding Gromov-Witten theory to the
Landau-Ginzburg/singularities model and developing it as an
effective computational tool for ordinary Gromov-Witten theory;
(ii) applying Gromov-Witten theory to study symplectic birational
geometry.

Mathematics is always an important tool and language in our
understanding of the structure of the universe we live in. In
the string theoretic model of the universe, modern mathematical
subjects such as geometry and topology play an ever bigger
role. In particular, Gromov-Witten invariants enter these models
as important physical quantities called instanton
corrections. This project will improve our ability to calculate
instanton corrections and hence enhance our understanding of the
possible structure of the universe.